The WorldWatcher Curriculum: Integrating Visualization into Inquiry-Based Science Learning

9720687 Edelson The WorldWatcher curriculum consists of two semester-long units; each unit includes learning activities, teacher support materials, science content materials, software and libraries of data. The materials are inquiry-based science learning curricula based on the themes of global change and biodiversity that make integrated and extensive use of scientific visualization and data analysis. The curriculum takes advantage of WorldWatcher, a scientific visualization and analysis environment for geographic data developed specifically for educational use. The standards-based materials are designed for use in a variety of 8-12 grade courses including earth science, environmental science, biology, physics and chemistry. The materials contain explicit support for teachers on developing new approaches to pedagogy and respect teachers' roles as local designers of curriculum, with guidance for adapting the curriculum to local objectives and constraints.